Development Of An Optical Technique For Evaluating The Flaws At Elevated Temperatures-A Feasibility Study

This SMALL GRANT for EXPEDITED RESEARCH award is made in order to develop an optical technique for the measurement of crack growth at elevated temperatures. The need is to evaluate the sensitivity of the method of caustics at the high temperatures.